Monitoring Finescale Shear and Strain in the North Atlantic Tracer Release Experiments (NATRE)

Two floats will be deployed as part of the World Ocean Circulation Experiment North Atlantic Tracer Release Experiment to characterize the fine scale and turbulence near the release. Parameters to be measured are temperature, conductivity, velocity, and the gradients of each.